Scaling dynamics and stability in extended physical systems

Pego
DMS-0905723

The focus of this work is on understanding stable dynamical
behavior in complex nonlinear systems. A variety of phenomena
are investigated in models of strong physical interest,
especially: dynamic scaling in models of aggregation and
coarsening (coagulation equations with input, simplified grain
growth models in metallurgy, ballistic aggregation with soft
collisions); the robustness of coherent structures in nonlinear
field theories (in particular, spectral stability for exact
solitary water waves); and stability analysis for incompressible
viscous fluids in light of recent progress on boundary conditions
for pressure (addressing domains with corners, coupling to
magnetism and stress relaxation, and the zero-viscosity limit).
Work on dynamic scaling in particular aims to further develop
ideas that connect dynamical systems methods with infinite
divisibility theory in probability.

Progress in this program leads to improved mathematical
methods for understanding how coherent behavior emerges in
complex nonlinear systems. The particular models to be studied
mathematically are of fundamental scientific interest, relevant
to materials science at the nanoscale, aerosol physics (models of
smog, soot, and smoke), population genetics, physical chemistry,
and other fields. The work on fluid boundaries should lead to
improvements in the numerical modeling of small-scale flows, with
consequences for studying small flying and swimming objects,
blood flow, and engineered microfluidic systems, for example.